A Study of Low-Latitude Pulsating Auroras During the Maaximum of Solar Cycle 22

This grant is for research in basic magnetospheric plasma physics and the nature of the aurora. In particular, the role of magnetic pulsations for the injection and removal of outer zone trapped Van Allen belt electrons will be studied. Observations of the pulsation phase of low-latitude auroral events during the maximum of solar cycle 22 using high sensitivity photometers and correlated data at Minneapolis will be continued and expanded by adding low-light-level TV images to the data set to produce permanent images of the pulsating forms. These pulsations begin at auroral breakup and often continue for many hours into the morning. This interaction is thought to be due to the interaction of Van Allen outer zone electron with cold plasma producting instabilities and precipitation.